Inverse Scattering for Obstacles and Related Problems

The proposers will work on inverse coefficient problems where the
given data is the scattering amplitude at fixed energy. The desired
result is that this determines the unknown coefficients. Specifically,
they will consider this problem for the acoustic wave equation in
an exterior domain with the sound speed and the boundary of the
domain as unknowns to be determined by the scattering data. They are
also interested in the related problem of recovering metrics modulo
diffeomorphisms from scattering data for Laplace-Beltrami operator.
The proposed method of attack is via integral equations that they
derived from Faddeev-type Green's functions in earlier work. The
preceding problems will be posed in three or more dimensions. In two
dimensions this approach needs to be combined with other methods like
the d-bar equation. The proposers will investigate ways of doing this
for the wave equation in an anisotropic medium.

Inverse scattering problems arise when one wishes to recover physical
properties of an object from data obtained by remote observations.
Interpreted broadly, they include methods oil exploration and medical
imaging. The problems that will be studied in this project include
showing that it is theoretically possible to determine both the acoustic
properties of a medium surrounding a solid obstacle and the shape of
the obstacle itself from reflected sound waves.